Checking Atomicity for Improved Multithreaded Software Reliability

The construction and validation of highly dependable software
currently requires extraordinary effort, especially when using
multiple threads of control, due to the need to consider all possible
thread interleavings. This research focuses on the strong,
widely-applicable non-interference property of atomicity. A routine
is atomic if its execution is not affected by concurrently-executing
threads. This non-interference guarantee reduces the challenging
problem of reasoning about the routine's behavior in a multithreaded
context to the substantially simpler problem of reasoning about the
routine's sequential behavior.

This work develops both dynamic and static (type-based) techniques for
formally specifying and verifying atomicity properties of
multithreaded programs in a cost-effective manner. It is expected
that atomicity checkers developed will 1) detect atomicity violations
that are resistant to both traditional testing techniques and existing
tools focused on race conditions; 2) facilitate code inspection and
debugging; and 3) encourage a modular design methodology that avoids
unnecessary interference between threads.